Nonlinear Control of Internal Combustion Engines

This research project deals with two basic issues associated with the drive-by-wire nonlinear control of internal combustion engines; the nonlinear modeling of the engines for feedback controller design; and the roust nonlinear control of engine torque. The nonlinear modeling incorporates the structure of the engine as an odd polynomial with coefficients that are transfer functions. These transfers functions are identified using frequency rich inputs. The nonlinear nature of engine is absorbed in the quadratic, cubic, and higher-order terms, and hence the identification task of transfer functions is reduced to a linear system identification. The development of nonlinear feedback controller design is carried out in the frequency domain using an inverse deseriking function approach. Hard time- domain constraints representing quantitative output performance and actuator saturation are directly incorporated in the design methodology. The performance specifications appear as nonsymmetrical tolerances which leads to a constrained system design. Experimental verification of these technologies is performed on a Ford 4.6 L V-8 engine available in Herrick Laboratories.